Development of a super-grid-scale model for artificial boundaries in fluid dynamics and other wave pheonmena

A new framework for modeling artificial boundary conditions in a variety of
applications, including fluid dynamics, acoustics, and electromagnetic wave
propagation, will be developed. Previous approaches have relied either on
simple descriptions of those processes occurring near boundaries, such as
linearized disturbances to uniform states, or on a range of ad hoc
techniques that attempt to mitigate spurious artifacts of domain truncation.
The present work is based on the concept of a super-grid-scale model that is
in many ways analogous to sub-grid-scale models that are used in Large Eddy
Simulations of turbulent flows. The formulation explicitly recognizes that
in general systems (especially inhomogeneous and nonlinear PDE), domain
truncation, like filtering, is a modeling problem--the result is ``missing
information'' that cannot be recovered from first principles. Many existing
techniques (especially damping layers) implicitly supply such a model, but
our hypothesis, backed by preliminary calculations in compressible flow and
acoustic applications, is that better models can be developed by exploiting
a strong analogy with sub-grid-scale modeling techniques. The analogy is
based on the dual roles that filtering and windowing play in real and
Fourier space. The proposal details a rationally sequenced research program
that includes examination of several different super-grid models (based on
analogies to existing sub-grid models), detailed computations and comparison
with previous methods in the areas of incompressible and compressible flow,
acoustics, and electromagnetic, and detailed analysis of stability and
convergence of the models and discretized systems.

It is often said that simulation is becoming the 'third leg' of science,
taking an important place beside theory and experiment. In engineering,
simulation is an essential tool that enables design and optimization based
on first-principles rather than empirical correlations. However,
computation is only useful when the underlying system is correctly modeled.
Indeed, many relevant systems in fluid dynamics, acoustics, and
electromagnetic waves cannot be reliably simulated with existing techniques.
Techniques for artificial domain truncation, in particular, are a pacing
item in many applications in these and related fields. Artificial domain
truncation (or artificial boundary conditions) refers to situations where
one wishes to simulate only a portion of a larger system in order to reduce
computational effort. The present research will provide a new generation of
such techniques that are based on a rigorous and well-validated modeling
framework called the super-grid-scale model. Successful outcome of the
proposed research has potential for far-ranging impact scientific and
engineering design-oriented simulations.